SGER: Application of Gaseous Ozone for Inactivation of Bacterial Spores

0206861 Gurol This research is proposed to consider ozone technology as an alternative to combat bioterrorism through decontamination of enclosed spaces. As a "Small Grant for Exploratory Research", the inactivation rate of simulants of anthrax spores exposed to gaseous ozone will be investigated under various possible scenarios. The results will enable the industry to ready the technology within a short period of time for full-scale applications. ***